Haplotype-Based Association Modeling for Whole-Genome Scan and Candidate Gene Studies

Abstract

Principal Investigators: Tzeng, Jung-Ying
Proposal Number: DMS-0504726
Institution: North Carolina State University

Proposal Title: Haplotype-based Association Modeling for Whole-Genome Scan and Candidate Gene Studies

Identifying genes responsible for human diseases can illuminate
significant insight to the detection, treatment and prevention of these
diseases. In the search for genes underlying human complex diseases,
haplotype-based association analysis has been recognized as a tool with
high resolution and, more importantly, potentially great power for
identifying modest etiological effects of genes. However, in practice,
its efficacy has not been as successful as expected in theory; one primary
cause is that such analysis requires a large number of parameters in order
to capture the abundant haplotype varieties. While high degrees of freedom
can hinder the power of identifying modest genetic effects on complex
diseases, the need to incorporate covariates of other risk factors further
worsens the degrees-of-freedom problem in mapping genes for complex
diseases. To tackle this issue, the proposed work constructs an efficient
and powerful model-based framework for association analysis at haplotype
level. The central focus of the methods development is on the efficient
use of haplotype information in a model-based framework, and different
strategies of reducing haplotype complexity are considered at different
research stages to optimize efficiency. For screening-stage analyses, the
PI constructs approaches based on haplotype similarity of pair-wise
comparison in a regression platform to detect chromosomal regions that are
likely to harbor disease genes. For refinement-stage analyses, the PI
develops evolutionary-based methods of haplotype grouping to identify
specific disease-associated haplotypes, and integrate new
dimension-reduction techniques into existing regression methods.

The proposed work aims not only to provide novel association tools in
complex gene mapping, but also develop a routine method for case-control
studies and offer a methodological foundation for future advancement. With
the availability of a better statistical tool, scientists can advance
their understanding of complex diseases, and design better diagnostic and
therapeutic strategies that improve human health.